7th International Conference on Finite Element Methods in Flow Problems

This award is for partial support of the 7th International Conference on Finite Element Methods in Flow Problems. It is to be held in April 1989, in Huntsville, Alabama. A special focus intended for this conference is an assessment of the relative merits of Finite Element versus Finite Difference methods in Computational Fluid Dynamics.